Conference: Social Cognitive Neuroscience, April 2001, Los Angeles, CA.

The first Conference on Social Cognitive Neuroscience will be held on the UCLA campus in April 2001. This conference will highlight the new but fast growing field of Social Cognitive Neuroscience. Symposia will focus on Social Relations and Theory of Mind, Emotion, Control and Automaticity, Attitudes and Attitude Change, and Stereotyping and Social Perception. Each symposium will consist of research reports using neuroimaging, neuropsychological, or computational modeling methodologies. Additional panel discussions will allow cognitive neuroscientists and social scientists to discuss ways in which important questions from the social sciences can be tested using the methods of cognitive neuroscience. There will also infrastructure talks focusing on developing coherent training programs in social cognitive neuroscience and securing funding for this sort of interdisciplinary research. There will also be a poster session to allow for rapid transmission of other research findings. Informal sessions will allow additional opportunities for researchers to become acquainted and to share their latest research results. The conference will help to inform the new emphasis at NSF on cognitive neuroscience (NSF 01-041).